Problems in Conformal Mapping Theory

ABSTRACT

This is a project in the conformal mapping subfield
of complex analysis and stochastic processes. Its goal
is to solve several well-known problems concerning
conformal maps and their applications. The main topics
of the study are the following: (i) conformal welding,
(ii) universal spectrum of harmonic measure, (iii)
diffusion-limited aggregation and other processes
with critical behavior.

Conformal mapping theory is a classical area of
complex analysis; it is an important tool in the study
of geometric invariants. The phenomenon of conformal
invariance is manifest in many mathematical structures
as well as in certain physical theories (conformal
field theory and statistical mechanics). The project
deals with metric and universality properties of
some key conformal invariants, and with conformally
invariant probabilities and processes.